Fast Capture and Understanding of Dynamic 3-D Shapes

The project focuses on sensing, and proposes to develop new ways for fast shape and appearance sensing, 3D tracking, recognition, and compression. The sensing approach proposed is based on dynamic active triangulation, with structured light illumination swept across the scene., allowing 100-200 range maps per second.